Conference on Utility: Theory, Measurement, and Applications in Santa Cruz, California, June 89

This proposal addresses an important emerging issue in decision making, the growing divergence between technologies developed to assist in the analysis of complex decisions and the appropriateness of the expected utility model as a theoretical basis for decision analysis. The focus of this proposal is a conference that will bring together leading practitioners and theorists to reassess decision analysis in light of the theoretical insights from expected utility theory and behavioral decision theory. In addition, the conference will examine the implications of empirical findings for the development of new decision theory. The DRMS panel felt that this emphasis represented an exciting match of the theory.building and applied interests of the DRMS program and that the conference represents an unusual opportunity to provide insights about the nature of theory.building, and the relation between descriptive, normative, and prescriptive insights, in the decision sciences. Furthermore, the principal investigator is believed to be uniquely qualified to define the agenda and to stimulate discussion among the invited participants. In light of the quality of the participants and the timing of the conference, its results are considered likely to be significant for theorists as well as practitioners of decision making.